State/Regional Computer Networking-Teacher Training- Dissemination

This project will support the dissemination of a model for state and regional computer-based communications networks for science educators. The source of the prototype and research base for these networks is CISCO-Net, the successful information system which has been implemented statewide in New Mexico. In order to facilitate the establishment of these information systems, the University of New Mexico project team will develop and make available a support package for interested system sponsors. This assistance will include: (a) on-site preliminary consulting and planning services; (b) the required networking software; (c) a listing of the required networking hardware and its installation; (d) training for the host site support staff; (e) a complete training package which the implementing site can use to prepare potential users of the information system; (f) a plan for evaluation and continued updating of the system.